Collaborative Research: Effects of Environmental Variation on Plant Disease in the Tallgrass Prairie

Karen Ann Garett, Allison Power, Helen Alexander (DEB-0130692, 0128277,0128810)

Little is known about the role of plant disease in natural ecosystems, but several current environmental concerns motivate a greater understanding. When considering the potential effects of climate change, invasions of new pathogen species, or movement of disease resistance genes from genetically modified crop species to wild plant populations, understanding the role of plant disease in natural ecosystems is key. We propose a study of plant disease in the tallgrass prairie to provide information relevant to these concerns as well as to a general theoretical understanding of pathogen ecology and the role pathogens may play in determining the success of particular plant species. Plants in the tallgrass prairie of North America are of particular interest because so little area remains of this ecosystem and attempts to restore tallgrass prairie are an important focus of conservation efforts in the Great Plains. In this study we will provide information about the abundance of pathogen species and the patterns of their co-occurrence on a set of representative tallgrass prairie plant species found at the Konza Prairie Biological Station (KPBS), an NSF LTER site in the Flint Hills tallgrass prairie region in northeastern Kansas. We will also estimate the effects of predicted climate change scenarios, landscape patterns of microclimate variation, and burning cycle patterns, and work to refine sampling methods for characterizing pathogen populations within natural plant populations. This study will supply an essential baseline data set for plant diseases at KPBS to complement the LTER database on plant species composition and productivity.